Coalfield Rural Systemic Initiative

This project would conduct Development-phase activities such as the regional self-study, to collect and analyze data aligned with the Systemic Reform Drivers. The data and the associated discussions, resulting in stronger partnerships between stakeholders, will be used to formulate the strategies for the Implementation phase.

The project will be conducted by a group termed the Proposal Development Team (PDT) and the Comprehensive Planning Committee (CPC) who represent each state. The goals of the project are:

Develop a structure to gather baseline data about the status of math/science education in the targeted region.
Use the data to develop intervention strategies for the region and for each district.
Research models of best practices for rural systemic reform.
Further the partnerships.
Develop and articulate a strategy for reform, submitted to the RSI Implementation competition.